EAGER: Towards an Open Source Backpressure Protocol Stack for Wireless Networks

While it has been shown theoretically that stochastic network
optimization techniques utilizing queue backpressure can result in
high performance cross-layer protocols, there has been limited prior
work on translating them into practice. In this exploratory research
project, we develop and demonstrate a novel cross-layer backpressure
protocol stack for wireless sensor networks, building on our
implementation of the backpressure collection protocol (BCP). The
possible gains of this highly agile approach to cross-layer wireless
networking are substantial and include increased throughput even in
the presence of mobility, handling of bursty external interference
events with reduced losses, and reduced protocol implementation
complexity. We incorporate techniques for MAC-layer backoff
prioritization, transport layer utility optimization, mechanisms to
handle various kinds of network dynamics, and interoperability with
asynchronous low power sleep schedules. Protocol implementation code
developed in the project will be released publicly as open-source. It
is expected that the successful completion of this project will
provide an important proof-of-concept that stochastic optimization
theory-driven protocols can be successful in practice.